Symposium on "Transposition, Recombination and Applications to Plant Genomics", to be held from June 5-8, 2003 at Iowa State University, Ames, Iowa

Partial support is requested for a conference on inTransposition, Recombination and
Applications to Plant Genomicslo, to be held from June 5 to 8, 2003 at Iowa State University, Ames,
Iowa. The meeting will include presentations by 18 speakers who are leaders in different areas of
transposable element and recombination research. Up to nine additional speakers will be selected from submitted abstracts for short oral presentations. The meeting also includes poster sessions and time for informal discussions. The conference incorporates programmatic and educational features to encourage meaningful participation by scientists and students representing diversity in experimental system, career level, ethnicity and gender.